Thin-Film High Temperature Superconductors: Structure, Processing and Transport

A program to study the structure, processing, and properties of thin-film high temperature superconductors using the nuclear hyperfine technique of perturbed angular correlation (PAC) spectroscopy is proposed. Transport measurements on the films will complement studies of the structure of magnetic flux lines in the materials. The physical structure and basic electronic properties of several types of superconductors will be measured on films synthesized under carefully controlled conditions. The effects of various processing procedures will be evaluated. The relationship between microscopic structural quality, as measured by PAC, and the superconducting transition temperature, resistivity and magnetic properties will be determined. The proposed work will contribute to the understanding of the behavior of photoexcited high temperature superconductors, and that will explore the magnetic flux lattice in these materials, especially in the low field region. A program to study the structure, processing, and properties of thin-film high temperature superconductors using the nuclear hyperfine technique of perturbed angular correlation (PAC) spectroscopy is proposed. The work will contribute to the understanding of the behavior of photoexcited high temperature superconductors and that will explore the magnetic flux lattice in these materials, especially in the low field region.